Findable Accessible Interoperable and Reusable (FAIR) Hackathon Workshop for Mathematical and Physical Sciences (MPS) Research Communities

The FAIR principles (findable, accessible, interoperable, and reusable) when applied to scientific research data have the potential to both ease the burden of readying data created from NSF funded research for sharing and enhance the use and reuse of the data. The FAIR Hackathon Workshop for Mathematics and the Physical Sciences (MPS) research communities will bring together innovative data scientists and developers from across physical sciences projects funded by NSF to solve real-world data challenges using the principles of FAIR: Findable, Accessible, Interoperable and Reusable Data. Designed to address issues of public access to data and to provide tools and relevant hands-on experience for researchers, the workshop will lay out the FAIR principles and metrics in the context of a hackathon using the successful model of The Bio-IT World FAIR Data Hackathon organized by the European Union's GOFAIR initiative of the European Open Science Cloud. The hackathon will unite MPS and research data management teams to tackle actual datasets with maximum impact potential.